Exploring the Intersellar Spectrum at Sub-millimeter Wavelengths (Astronomy)

At present, the sub-millimeter band is one of the few regions of the electromagnetic spectrum yet to be studied in detail by astronomy. Recent developments in detector and telescope technology are now making sub-mm observations feasible. One of the newest instruments that is becoming available for scientific measurements at these wavelengths is the SMT (Sub-mm Telescope) at the University of Arizona. Using this new telescope, observational studies in astrochemistry will be conducted that will focus on two main areas of research: 1) detection of diatomic hydrides in interstellar gas, including AIH, CaH, Ch+, MgH+ and SiH, and 2) spectral line surveys of Orion and other objects in the unexplored sub-mm windows at 600-700, 450, and 350 um. Measurements of these hydrides has important implications for shock chemistry, dust grain composition and electron densities in molecular clouds. The surveys should yield new unidentified lines, as well as constrain chemical and physical parameters of the sources observed. The astronomical measurements will be supported by a laboratory spectroscopy effort to measure rest frequencies and establish the carriers of unidentified spectral features. Interactive activities at the host institution include: teaching a graduate and undergraduate course, conducting an interdepartmental seminar series, and mentoring graduate students. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.